At Risk Scientists Pipeline Building Via Young Scholars

9552907 Jason Southern Illinois University at Edwardsville will initiate a five- week, summer residential, Young Scholars project with follow-up activities during the academic year inchemistry and biology for 50 at-risk students intering grades 9,10, and 11. The project combines classroom instruction in mathematics, chemistry, biology, language arts, ethics and career exploration wilth field trips, laboratory study, and research to provide an intellectually stimulating environment. Scientists from the university will serve as role models and mentors in assisting students intheir researach exlperience.